Time-Dependent Dynamics for Atomic Systems

This work continues the study of atomic dynamics by the direct solution of the time-dependent Schrodinger equation on a numerical lattice, focusing on the dynamics of Rydberg and continuum states. There are projects involving the dynamics of multi-electron wave packets and projects involving the solution of time-dependent close-coupling equations for multi-electron dynamics. New theoretical and computational tools will be developed.